Three Dimensional Magnetics of Seafloor Spreading in the Cayman Trough

This is a detailed magnetic study of seafloor spreading in the Cayman Trough, Caribbean Sea using high denisty aeromagnetic data and three dimensional magnetic inversion procedures. The trough offers a look at seafloor spreading and crustal accretion from three unique persepctives; as an indicator of relative motion sand tectonic desplacements within a complex plate boundary zone, as an example of accretion occurring under extreme thermal, tectonic and spreading conditions, and as an example of anisolated spreading cell whose development can be mapped from the time of its formation.